Research Initiation: The Dynamic Response of Space Structure Supercomputers, and the Multigrid Approach

The objectives of this project are: (1) to develop efficient algorithms for the solution of generalized eigenvalue problem by using the multigrid method; (2) to implement these algorithms on supercomputers and parallel processors; (3) use the algorithms to investigate the dynamic response of large scale space structures. The multigrid method (a fast, iterative linear matrix equation solver) will be used to solve the matrix equations that arise in solution algorithms. (The resulting algorithms will be implemented on a CRAY X-MP/48 supercomputer and various concurrent systems e.g., Alliant FX/8 and hypercube configurations. The integration of new solution techniques for the eigenvalue problem with state-of-the-art supercomputer technology will enable complex structures to analyzed accurately and allow the full potential of these machines to be realized.